MARGINS Initiative Planning Office

9503815 Sawyer The PI will set up a MARGINS planning office to plan and coordinate coordinate all activities related to the MARGINS initiative. Its office will organize case-study workshops, steering committee meetings, publish semi-annual newsletter, respond to all information requests concerning the MARGINS from the community, organize special MARGINS-related fora at AGU and GSA meetings and set-up an international MARGINS program. ***